ICER Midwest Workshop: Preparing IT Graduates for 2010 and Beyond

The Ohio State University has received a Special Projects award to convene a workshop in the Midwest of the US, on the transforming of undergraduate computing education in response to rapid changes in technology and its applications. The purpose of this workshop is to begin a nationwide discussion to catalyze the transformation of undergraduate computing education. Such a transformation is critical to information technology (IT) workforce preparation and the continued preeminence of the U.S. in technology innovation. The workshop will identify areas of needed change and strategies for effecting that change.